SURA Optical Technologies Workshop; Research Triangle Park, NC; December, 2001

As noted in the proposal, optical networking actually encompasses a range of technologies which are under continuous improvement. Many universities and research organizations are currently interested in deploying a subset of these technologies using various strategies to enhance research and learning.

This proposal is for SURA to facilitate a workshop that
explores the current state of optical technologies,
assists in educating campus networking professionals about optical technologies,
explores current best practices involving the deployment of optical technologies in support of advanced academic networks at the local, regional and national level.

This will be a 2-day meeting in North Carolina, December 13-14, 2001. The long-term outcome of the conference is expected to be an Optical Networking Cookbook.